Reproductive Endocrinology of Free-Living Adelie Penguins at Torgersen Island, Antarctica

9317356 Vleck The goal of this research is to understand the physiological and hormonal basis for individual variance in reproductive behavior and breeding success in free-living Adelie penguins at Torgersen Island, Palmer Station, Antarctic Peninsula. Aspects of reproductive demographics and behavior, including return rate to the colony, reproductive success, patterns of mate acquisition and nest attentiveness have been monitored in a population of penguins at Torgersen Island since 1990. Methods will include weighing and measuring birds in the breeding colonies and collecting blood samples for hormone analysis from individuals expressing known behaviors. Intensive behavioral observations of banded individuals will be carried out at every stage of the reproductive cycle. The hormonal and body mass changes that accompany the different stages of the reproductive cycle will be determined. The relationship between those measurements and reproductive success will be determined. Competing hypotheses concerning reproductive competency and general body condition will be tested as explanations for why a high proportion of breeders successful in one year do not breed in following year. The physiological underpinnings for the long shifts that birds spend in attendance at the nest will be studied in order to understand the interaction of hormonal and energetic considerations that influence incubation behavior. Understanding these proximate causes of individual behavior will shed light on the evolutionary bases of life history patterns. The effects of stress will be measured in birds at different stages of the reproductive cycle by determining basal levels of corticosterone and its maximum rate of increase. The hormonal effects of stress will be compared in penguins. This research will allow determination of whether human interference affects penguin reproductive success and whether such effects vary in degree through the reproductive cycle.